Center for Engineering Logistics and Distribution (CELDi): An NSF I/UCRC at Texas Tech University

This action funds Texas Tech University to join the existing multi-university Industry/University Cooperative Research Center for Engineering Logistics and Distribution. The addition of Texas Tech as a member will complement the existing core competencies of the current members and contribute to the overall center mission and strategy. The primary objective of this site will be to provide meaningful and useful research to industry partners that can be integrated into existing logistics and distribution networks with the highest net gain in logistics systems performance.